Non-Destructive Evaluation of Prestress Forces in an Actual Bridge

This is an innovative project which will investigate the feasibility of determining the amount of loss of prestress in the tendons of a prestressed girder by vibrating the entire bridge at various intervals and comparing the data from subsequent observations to the original data, thus establishing a rate of loss and total loss of the prestressing force.